Space-Time Properties in String Theory

Holography is one of the most difficult concepts to understand in a quantitative manner, as it is intimately tied to the quantization of gravitational theories. Recent advances in string theory have shown that it is a concept that can be realized in dualities between gravitational theories and non-gravitational theories. The PI proposes to study Strings in polarized plane wave (PP) backgrounds. The PI proposes to examine the relationship of the correlation functions of large R-charge operators in "momentum" space to objects in the string theory (or supergravity) in the pp wave background. The PI also wishes to investigate properties of giant gravitons and the implications for the stringy exclusion principle. Finally the PI intends to investigate how noncommutative gauge theories living on a brane couple to linearized supergravity backgrounds.